Postdoctoral Fellowship: MSPRF: Fundamental Limits on the Learnability of Quantum States and Channels

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Jacob Beckey is “Fundamental Limits on the Learnability of Quantum States and Channels”. The host institution for the fellowship is the University of Illinois at Urbana-Champaign and the sponsoring scientist is Felix Leditzky.